Travel to International Symposium on Composite Materials and Structures, Beijing, China, June 10-13, 1986

This is a travel grant to support the principal investigator to attend the International Symposium on Composite Materials in Beijing, China (June l0-l3, l986) and present an invited paper. This conference is the first of its kind to take place in China and is co-sponsored by the American Astronautical Society.